Fourth International Conference on Forensic Statistics

9910238

The Fourth International Conference on Forensic Statistics will be held at North Carolina State University on Dec. 5-8, 1999. The conference is intended to allow statisticians, forensic scientists, lawyers, and scholars from related disciplines to discuss the many and varied uses of Probability and Statistics in legislative, administrative and judicial proceedings. Forensic Statistics, the application of Statistics and Probability to legal matters, is an expanding field. The current debates surrounding the presentation of evidence based on DNA profiling and epidemiological studies on the health effects of various drugs are just two examples. There is a great need for statisticians to provide guidance to forensic scientists, and lawyers and the courts. By bringing together statisticians, forensic scientists, lawyers and other scholars, this fourth international conference will further the interdisciplinary understanding of Statistics and Probability applied to legal matters. The conference is the fourth in a series. The previous conferences have been held at Univ. of Edinburgh and the Arizona State University. Based on previous attendance, about 250 people are expected to attend the fourth conference. This proposal provides funds to insure that U.S. participants will be able to hear and network with the best experts on this topic from this country and from abroad, and to provide access to the conference by graduate students, postdoctoral fellows, new researchers, and members of underrepresented groups.